Continuous Hazardous Emissions Monitoring by Resonance Ionization

ABSTRACT CTS-9616763 This is an examination of the use of resonance-enhanced multiphoton ionization spectroscopy in conjunction with time-of-flight mass spectrometry (REMPI/TOFMS) for continuous monitoring of incinerator stack gas emissions. Detection limits for 28 compounds found in incinerator stack gases have been determined in earlier studies; in this study polychlorinated biphenyls (PCBs) and chlorinated polycyclic aromatics are added to this list. Also pursued in this study are the establishment of reliable methods for direct sampling of semivolatile polycyclic aromatic hydrocarbon (PAHs) and other combustion products and the development of calibration methods for absolute concentration measurements of stack-gas components. Finally, the reliability of the method to function under simulated incinerator-upset conditions is evaluated. The goal of this effort is to adapt a technique for chemical analysis that has been used in research studies of combustion for monitoring of stack gas emission from incinerators for purposes of incinerator control and environmental compliance. A simple, real-time measurement of chemical species in stack emissions is needed to make waste incinerators acceptable environmentally and politically. ***